Establishment of a Steering Committee for Paleoclimates of Arctic Lakes and Estuaries (PALE)

This award supports the establishment of a Working Group for the Paleoclimate of Arctic Lakes and Estuaries (PALE) initiative as part of Arctic Systems Science (ARCSS). The Working Group will develop a science and management plan for this program and will be active in its implementation.